The Rensselaer-Albany Regional Calculus Consortium - A Curriculum Adaptation, Refinement, and Implementation Program

A consortium of institutions that includes Rensselaer Polytechnic Institute, SUNY Albany, a number of community colleges in New York, and local high schools is being organized to adapt, refine, and implement a revised calculus curriculum at their institutions. The faculty are attending workshops and computer-calculus classes at Albany and Rensselaer.